Advanced Undergraduate Laboratory in Plasma Physics

9451948 Williams A new advanced undergraduate laboratory in plasma physics will be created for training students who will specialize in high technology areas which rely on a working knowledge of plasma phenomena, such as plasma processing of materials, fusion energy and gaseous electronics. Two experimental stations will be built, on which students will learn basic vacuum techniques, plasma production techniques, basic plasma diagnostics. Students will be introduced to basic plasma physics by studying particle motions, fluid phenomena, waves, beams, diffusion, resistivity, equilibrium, stability, kinetic theory and nonlinear effects. Lecture notes and a laboratory manual will be generated.